REU: Undergraduate Research Participation Program in Science

This is a Research Experiences for Undergraduates project. It provides research experiences for ten students at Roswell Park Memorial Institute. Students will participate in projects involving biology, chemistry and biophysics.